Finding Significance

0072917
ALLEN

The Exploratorium will conduct a controlled, two-year research project, titled "Finding Significance," to study how different exhibit presentation techniques affect visitors' abilities to make meaning -- or find significance -- and how such techniques impact learning. The techniques will be applied to a varied sample of five exhibits commonly found in science and children's museums. The exhibit design techniques include a) sharing scientist and exhibit developer stories, b) sharing visitor stories, and c) modeling inquiry. Although each technique shows promise at eliciting personal significance, they have yet to be rigorously tested and applied to the same set of exhibits to compare relative strengths and weaknesses. Five baseline exhibits, plus four variations of each, will be tested on groups of visitors, including adults, children and mixed groups of both.